University of Connecticut Young Scholars Program

9353019 Fox The University of Connecticut will provide a 6-week summer residential Young Scholars project for 36 students entering the 11th and 12th grades. The interdisciplinary focus will include chemistry, physics, engineering, and computer science. Students will complete projects on imaging and computer aided design, fabrication of microelectronic devices, environmental research, laser spectroscopy,and biotechnology. Hands-on research experiences in laboratories of practicing mentors will be supplemented by research progress meetings, science seminars and symposiums. Follow up activities will include return visits to the University of Connecticut and presentations of research at high schools. ***